MGR Honorable Mention: Melina Lozano

This special award will give Ph.D. student Melina Lozano additional flexibility in pursuing her graduate studies and research initiation in linguistics. This award will strengthen minority participation in research in this area.